CAREER: Language Features for Robust Software

Developing reliable software systems is a key challenge for our
society. Despite many years of effort, software systems still suffer
from catastrophic failures. All too often, software failures are
caused by the propagation of errors through critical components of the
system. Unfortunately, current software development tools and
practices actually encourage the introduction of unnecessary
dependencies that serve to propagate errors between conceptually
unrelated components.

The goal of this research is to explore a new approach for creating
software systems that are robust against failures. The approach
exposes the high-level structure of a software system to the compiler
and run-time environment to enable the automatic application of techniques that
appropriately manage error propagation to make software systems more
resilient. The foundation of this approach is a specification
language that allows the developer to identify tasks and describe when
tasks should be invoked and how each task changes the conceptual
states of objects. A set of techniques use this information to
monitor and analyze task execution to eliminate unnecessary
dependencies. The broader impact of this research is the potential to
mitigate the effects of software faults.